REG: An ESEM for Membrane, Biotechnology, and Catalysis Research

Abstract

Proposal No: 9808280 Krantz
Proposal Type: Research Equipment Grants Program
Principal Investigator: William Krantz
Affiliation: University of Colorado

This grant is awarded through the Separations and Purification Program
sub-element of the Interfacial, Transport and Separations Program of
the Chemical and Transport Systems Division. The principal
investigator is Dr. William Krantz at the University of Colorado.
Research equipment funds are requested to purchase an Environmental
Scanning Electron Microscope (ESEM) with Energy Dispersive X-ray
analysis. The instrument will be used to support research in membrane
science, catalysis, biotechnology and frozen soils in the Department
of Chemical Engineering and in the NSF Industry/University Cooperative
Research center for Separations using Thin Films.

The Environmental Scanning Electron Microscope permits high resolution
structural and elemental analysis at up to 50 million times larger
than conventional Scanning Electron Microscopes. It is particularly
useful for research involving nonconducting and/or thermally sensitive
polymeric and inorganic membranes, biofouling layers, catalysts,
ceramic materials, microbial systems and frozen soils. In addition to
knowledge generation benefits, acquisition of the instrument will
benefit hands-on learning experiences for students.